High Energy Laser Heating of Optical Fiber Preforms: Thermophoretic Deposition and Collapse

Fiber optics is a key component in both telecommunications and in sensors of the future. The work, although fundamental, is expected to significantly improve the production of optical fibers. There is the further expectation that the results of the work will enhance U.S. technology in this area.